Spherical Hydrophilic Polymers: Synthesis, Characterization and Applications

9622609 Newkome The overriding theme of this research concerns the investigation of the preparation, structural aspects, and chemical properties of dendrimers (cascade macromolecules) that have been internally modified. Pursuant to this goal is the design and synthesis of application-oriented dendritic building blocks possessing masked, or inert, transformable functionality to be accessed for use after dendrimer construction. Project goals include: 1) Construction of functionally differentiated dendritic building blocks for the site-specific incorporation of application-oriented functionality into dendrimers. 2) Construction of dendrimers with compartmentalized moieties capable of forming connections with other dendrimers. 3) Concommitant (`combinatorial") construction of multiple, dendritic assemblies (dendritic libraries). 4) Unimolecular micellar constrained and templated preparation of monodisperse, small particle, semiconductor crystallites (also described as "quantum dots"). 5) Precise arrangement of semiconductor crystallites into three-dimensional superarrays allowing Q-particle electronic coupling "fine tuning". %%% The merits of this research rely on the study of the chemistry associated with physicochemical properties of highly branched, specifically designed, macromolecules, and the attendant utility inherent in those properties. Results of this research will expand foundations for understanding of chemical phenomena occurring within "designer" reaction environments. ***